COMPRES: Community Facilities and Infrastructure Development for High-Pressure Mineral Physics and Geosciences

COMPRES is a community-based consortium that supports research in the materials properties of Earth and planetary interiors with particular emphasis on high-pressure science and technology and related fields. It is charged with the oversight and guidance of important high-pressure laboratories at several national facilities, such as synchrotrons and neutron sources. These have become vital tools in Earth science research. It facilitates the operation of beam lines, the development of new technologies for high-pressure research, and advocates for science and educational programs to the various funding agencies.